Implementation of a High Performance Microprocessor

The revised project scope is for a 12-month investigation of the SYSTEM performance utilizing a WM processor. In particular, the investigation is to examine "two potential bottlenecks of WM systems, namely memory bandwidth and operating system overhead-- especially context switching". Because superscalar and superpipelined processors are memory "bandwidth hungry" (in the case of the WM processor up to 11 memory references can be generated per processor cycle)--there is a need to examine the memory system required to support such a processor. An instruction cache can only eliminate one of these references, while for vector strides other than one a data cache may actually REDUCE the effective bandwidth. Due to the large amount of internal state which an implementation of the WM processor might have (greater than 700 bytes)--the cost of a context switch becomes very high as all of this context must be saved (typically off-chip as most of the on-chip real-estate is filled with registers, cache,...). The investigators will explore several design alternatives to address each of these areas in order to determine if it is feasible to build a high-performance SYSTEM utilizing a WM processor.